Biotechnology for the Environment

The EU-US Task Force on Environmental Biotechnology obtained one-time support for short-term transatlantic exchanges of early career scientists designed to foster collaborative interactions and enhance the professional development of the exchange fellows through the acquisition of expertise in microbial biotechnology. Eleven participants have completed exchange experiences in EU laboratories. These experiences have generated much enthusiasm for the program and requests for its continuation.
Collaborations and publications are now in the planning stages. As a result of this momentum, we are seeking a renewal of the grant funding to support a similar number of new exchange fellows in the coming year.